Development of a Multichannel Time-Resolved Fluorometer for Macro and Mictrostudies

This project, `Development of a Multichannel Time-Resolved Fluorometer for Macro and Microstudies', is to update and improve the ability of the Time- Resolved Fluorescence Facility at Mount Sinai to provide pertinent information about the structure and dynamics of biological macromolecules and their complexes. The present instrumentation in the Facility was funded in part by a 1986 NSF award (DMB-8516318) entitled `A Multi-User Laser for Time-Resolved Fluorescenc'. The new proposal has three main objectives: replacement of the outdated, limited-wavelength range pulsed laser system with a state-of-the-art pulsed laser system capable of providing the UV and visible excitation wavelengths required by numerous research programs construct and implement a new sample chamber with three simultaneous detection channels to enhance the collection and the precision of time-resolved fluorescence intensity and anisotropy data sets combine time-resolved fluorescence with microscopy to permit studies on 'micro' samples A three year program is outlined, with most of the acquisition/development of the major components to occur in the first year. Implementation, testing, and commissioning will be performed in the following two years.